Topics in Formal Geometry

Abstract Proposal: DMS-9804833 Principal Investigators: Ian Anderson and Mark Fels Formal differential geometry is the study of localized deformation invariants defined on the solution space of a given differential relation. These deformation invariants arise as cohomology classes in various invariant variational bicomplexes defined on the jet spaces of the given differential relation. The objectives of this research proposal are to develop new methods for the computation of these localized deformation invariants, to study the properties of these invariants through the use of jet bundle techniques, and to develop new applications of formal geometry in global analysis, integrable systems and mathematical physics. Three avenues of research are proposed. The first project will explore the relationships between the variational bicomplex for two differential equations which are related by one of the various integration or reduction methods, some of which date back to Lie and Vessiot. The second project is based upon two new extensions of the inverse problem of the calculus of variations. One extension is directed towards the existence and classification of Hamiltonian structures; the other extension seeks to characterize integral invariants arising in global analysis such as the Kazdan-Warner integrals which obstruct the solution to the prescribed curvature problem. The third project is motivated by the role that the variational bicomplex plays in the general theory of characteristic classes and seeks to generalize this role to general pseudo-group actions on fiber bundles using the method of moving frames and differential invariant theory. The prevalent theme of the proposed work is symmetry. By the symmetry of an object one means the group of motions in space which leave the object unchanged. The symmetry of a cube includes discrete rotations by 90 degrees about each one of its 3 axis. The symmetry group of a sphere includes the continuous rotations t hrough any angle about any axis through the center of the sphere. In problems in applied mathematics, differential geometry and mathematical physics, one is interested in the symmetries which leave the governing (differential) equations unchanged. Such symmetries are extremely important in studying both the analytical and qualitative features of the governing equations. Indeed, almost all known exact solutions of important non-linear equations (such as the Einstein, Yang-Mills, or harmonic map equations) have a high degree of symmetry and can be obtained by symmetry methods. Nevertheless, there are many theoretical and practical issues yet to be studied. In particular, theoretical techniques which have previously been computationally inaccessible can now be investigated using powerful symbolic mathematics computer programs.